A National Agenda for Advancing the Undergraduate Mathematics Curriculum

Mathematics (21)

A National Agenda for Advancing the Undergraduate Mathematics Curriculum

This project supports a major initiative to stimulate and direct curriculum development and collaborative multidisciplinary relationships for the undergraduate program in the mathematical sciences. The project creates a set of curricular recommendations and an agenda for implementing them, and these are disseminated to mathematics faculty and department chairs, deans, and faculty in partner disciplines. The goals of the project are
1. To expand the numbers of students undertaking substantial study of the mathematical sciences, majoring in the physical sciences and technology as well as in the mathematical sciences, and continuing to graduate study in these areas;
2. To better prepare students for teaching, scientific careers, employment in business or industry, and other jobs for which mathematical preparation is needed;
3. To improve curricular offerings for students who might take only one college-level course in the mathematical sciences.

An outcome of the project is a publication of recommendations and models of good practice for the undergraduate program in the mathematical sciences that are based on extensive consultations with mathematicians and users of mathematics.

The Division of Undergraduate Education and the Division of Mathematical Sciences jointly funded this project.